CISE Research Instrumentation: Advanced Human Computer Interfaces for Biomedicine

EIA-9911095
Yunxin Zhao
University of Missouri

CISE Research Instrumentation: Advanced Human Computer Interfaces for Biomedicine

The Department of Computer Engineering and Computer Science at the University of Missouri-Columbia will purchase audio, video, and virtual reality (VR) equipment which will be dedicated to support research in computer and information science and engineering. The equipment will be used for several research projects.

1. Spoken Language Processing for Telemedicine and Collaborative VR Environments
Voice-driven automatic captioning in telemedicine for people with hearing disabilities
Speech separation and recognition for collaborative VR environments

2. Video Communications over Telemedicine Networks and Geometric Coding of Anatomical Data
Lips and hands focused real-time video coding for lipreading and hand-signing in telemedicine
Three-dimensional geometric coding for collaborative VR-based endoscopic simulator

3. Collaborative Virtual Endoscopy and Digital Human Atlas with Speech Interface
Prototype Intelligent Endoscopic Simulator (IES) for examining internal tissues and organs
Virtual operating table interface for teaching and examining complex multisource anatomical data